U.S.-Korea Cooperative Research: Combustion Dynamics in Gas Turbine Engines for Propulsion and Power Generation Applicatons

0217106
Yang

The project is to develop advanced analytical and numerical modeling techniques for understanding, analyzing, and predicting combustion dynamics in gas-turbine engines for propulsion and power-generation applications by international cooperative research with Hankuk Aviation Univertsity in Korea. The expected results would provide a general framework about various phenomena of combustion dynamics and the models could also serve as a backbone for implementing active control schemes.